NSF I-Corps Hub (Track 1): New England Region

This I-Corps Hub develops a New England regional innovation ecosystem to provide training to scientists and engineers that supports the translation of critical emerging technologies. The Hub is a consortium of universities spanning the New England region, and many of these researchers are located in rural areas lacking access to the resources found in a robust innovation ecosystem. The Hub aims to elevate this region by connecting I-Corps participants with curated resources and mentoring to enhance place-based innovation across New England. The Hub strives to ensure the participation of all Americans to have a positive impact on local economies, generate good-paying jobs, revitalize manufacturing, and accelerate new industries. In addition, the Hub will proactively recruit participants from institutions that are not Hub partners. I-Corps training will form the foundation to grow an entrepreneurially-minded, professional Science, Technology, Engineering and Mathematics (STEM) workforce and develop new products and services to benefit society and increase regional and U.S. competitiveness.

This I-Corps Hub project is based on the development of a regional network that provides Science, Technology, Engineering and Mathematics (STEM) researchers throughout New England with I-Corps entrepreneurial training, mentoring, and support. The goal is to promote and accelerate the translation of fundamental research to products and services that improve societal well-being and drive economic growth. While participants from all STEM disciplines will be recruited, emphasis will be on those benefitting local communities, such as BlueTech, Forestry, Sustainability, and Biotech/Life Sciences. The Hub will deliver I-Corps training on a large-scale and high frequency to researchers throughout the region via both online and in-person courses reaching higher education colleges and universities. This training will be accomplished by co-teaching using a regional instructor pool from all partner institutions with continual skills development. In addition, the number of researchers participating in I-Corps is expected to grow, generating significant new deep tech ventures while increasing the odds of commercial success and societal impacts. Outreach will be a primary activity of the Hub to ensure that all researchers in New England have the opportunity to participate in I-Corps and benefit from this training.